Workshop: Dublin Core Metadata Initiative Workshop Support

The Dublin Core metadata process began in 1995 and has brought together a multidisciplinary spectrum of practitioners and theoreticians to address issues related to standards for resource description of electronic resources on the internet.

Progress in metadata definition and standards adoption is critical to building large scale, distributed digital libraries. Metadata is essential to providing contextual data through which information objects gain meaning and usability. The Dublin Core metadata process has been particularly successful in defining the metadata agenda and building international consensus. It has spawned projects incorporating its basic element sets in about 25 countries, covering numerous disciplinary subject materials.